PPD/IEP: DREAMS: Disabililty Research Encompassing American Indians in Math and Science

The College of Education and Human Development at the University of North Dakota (UND) is continuing the DREAMS program with the support of faculty from the College of Arts and Sciences and the School of Engineering and Mines and of Native American Programs at UND and in conjunction with parents and school personnel representing four reservations and two Indian service areas in North Dakota. DREAMS involves a group of 30 American Indian students with disabilities, now ranging in age from 8 to 14, in a program of classroom-based and informal activities in mathematics and science. Summer institutes which involve parents, educators, elders or culture teachers, university faculty, mentors, and role models, as well as the DREAMS students, are an important feature of the project, which aims to provide curriculum which meets national standards in science and mathematics, provides for hands-on learning, and is culturally connected. Computers with the adaptive equipment needed by each student have also been made available. The DREAMS program has succeeded in raising the awareness of all participants that persons who are disabled can succeed in life and in careers that require expertise in mathematics and science. Goals for the second cycle of DREAMS as an Experimental Project are to continue the program for the original participants, and also add more students; to articulate and develop the professional development potential of DREAMS; and to supplement National Science Foundation funding to augment and continue DREAMS. Through systematic professional development the incompletely realized goal of DREAMS, to enable change in the infrastructure of schools, will be promoted.